Parallel Sparse Matrix Computations: CAREER

9502594 Raghavan The primary objective of Raghavan's research is to develop algorithms and software for a scalable, fully parallel solution of large, sparse linear systems of equations using direct methods; the solver developed will be used in a key application both to demonstrate the significance of the work and to help study and resolve issues of interface. A secondary objective is to provide tools suitable for other areas of scientific computing obtained as variants of some of the algorithms developed.